Program for Gender Equity in Science, Mathematics, Engineering and Technology (PGE): (DEM) Bringing Up Girls in Science

Bringing Up Girls in Science (BUGS) is a demonstration project in the Department of Technology
and Cognition at the University of North Texas (UNT). The goal of this project is to provide
educational experiences in an outdoor learning lab for girls in grades four and five that will
increase girls' interest, participation, self-concept, knowledge, and achievement in the
environmental sciences. During Year One, thirty 4 th and 5 th grade girls (BUGS participants)
will participate in an after school outdoor science lab at Sam Houston Elementary in the
Denton Independent School District in Denton, TX. Participants for the project will be
recruited from across the district. BUGS participants will be mentored by female
high students enrolled in the Texas Academy for Mathematics and Science (TAMS).
BUGS participants and mentors will be joined the second and third year of the project
by girls in special populations at distance sites through the use
of two-way audio-visual desktop conferencing tools, a project WEB site, chat rooms, and
computer ``pen-pals''. For the second and third year special populations joining the project
will include: (1) students with emotional and behavioral problems attending Rose Street
Day Program and Therapeutic School in Wichita Falls, TX; (2) a school district which serves
large numbers of Hispanic and Native American students in Bernalillo, New Mexico; and
(3) students from a rural school district in Decatur, Texas. BUGS participants at distance
sites will be able to use ``electronic field trips'' developed from activities that were
videotaped during Year One to increase their opportunities to participate in the ``outdoor
science lab experience.'' Family involvement will be ongoing throughout the project.
Career awareness and educational opportunities materials will be housed by a local
public library for the parents of BUGS participants. Three parent
meetings per year will be provided to ``showcase'' student work and provide educational
and career information.